Embeddings, Intersections and Symmetries

This proposal involves various aspects of the homotopy theory of
manifolds, all of which, in one way or another, have connections to
the theory of embeddings. The proposal
has four parts:

1) Embedding theory. The PI will use techniques arising from the
homotopy theory of Poincare complexes to study embedding questions.

2) Group Actions. The study of equivariant manifold classification
problems will be approached in a new way using homotopy theory.

3) String Topology. This is emerging field, created by Chas and
Sullivan, studies algebraic structures associated with the free loop
space of a manifold. The PI proposes
to study homotopy theoretic aspects of string topology.

4) Thickenings. A "thickening" of a space is a manifold model for
its homotopy type. The PI proposes to analyse the homotopy type of
the moduli space of thickenings of a finite complex.

A "manifold" is a space which is locally Euclidean. Manifolds arise
naturally in physics, chemistry and biology as spaces of solutions of
a suitably "nice" set of algebraic equations modeling the scientific
object of study (space-time, atoms, dynamical systems, etc.) .
Manifolds play a central role in mathematics. It is often the case
that mathematical questions about manifolds can be formulated in
terms of parametrized families of functions between spaces associated
with manifolds. Homotopy theory is a subject designed to tackle
questions about such families of functions. The PI proposes to study
certain kinds of manifold questions which can be hopefully be analyzed
from the homotopy theoretic toolbox. These involve problems related
with intersections, embeddings and symmetries.